A Planning Grant Proposal to Develop "QUEST!" -- A Newspaper for Children and Families about Science and Technology in Everyday Life

9453025 MacNeice ABSTRACT Washington Independent Writers is engaged in a planning phase toward publication of Quest?, a 4-page, tabloid sized newspaper about science, technology, and society for children and their families. The target audience is children age 8 to 16, with a focus on the 10-14 year-old age group, along with their parents, teachers, and counselors. A prototype version of the paper has been published locally and distributed through Safeway stores. During the planning phase, the PI and staff will conduct the following activities: o Conduct front-end evaluation of the target audience with particular emphasis being given to identifying ways to reach underserved and underrepresented groups. o Work with science, technology, and graphics experts to improve the quality of the content and design. o Explore traditional and new distribution mechanisms and cooperative arrangements. o Create and test interdisciplinary procedures for evaluation. o Establish a network of individual, community, corporate, and institutional supporters, including educators, community leaders, scientists, and engineers. o Create linkages with schools and school programs. o Explore funding sources and sponsorships. o Continue building a Board of Advisors.